Research Initiation: Steric Stabilization and Crosslinking of Metal Oxide Powders for Ceramic Forming

The objectives of this project are to disperse and stabilize ceramic powders by way of monolayer adsorption of a polymer for improved properties and reduction of processing cost. After the stabilization, the particles are bonded by crosslinkings of the adsorbed polymer for forming. Amorphous silica and alumina will be used and dispersed in a nonaqueous solvent and will be stabilized by adsorbed polymers. Candidate polymers will have anchor groups for stronger adsorption and will have crosslinkable groups for setting of the powder after being dispersed and stabilized. The dispersion stability will be determined by measuring sedimentation volume, viscosity, turbidity, etc. Dispersion stability is one of the most important parameters in ceramic powder processing because it is directly related to the mechanical properties of the ceramic part. Binding of the ceramic powders will be carried out by adding a few weight percent of catalyst to the powder/polymer mix or by thermally inducing inter- particulate bonding via crosslinking of the adsorbed polymers. The green bodies formed from the process will be characterized in terms of density, flexibility, microstructure, homogeneity, etc. The novelty of this research is the use of much smaller amounts of organic additives and increased solid loading in ceramic forming processes. This would result in increased homogeneity, better control over the flexibility of ceramic tapes, lower shrinkage, and shorter binder burn-out time which would lead to the reduction of processing cost.